Research Initiation Award: Overload Tolerance in Safety-Critical Systems

9410752 Baruah The project will investigate approaches to deal with the performance depredations resulting from transient overloads in time-critical applications. The research aims to understand the behavior of resource allocation algorithms under overload conditions, with the goal of building overload-tolerant systems. More specifically, the project will address the following problems a). Identification and analysis of new performance metrics for characterizing systems with overload conditions. b). The design and analysis of scheduling algorithms for systems with overload conditions. c). Applicability of various computational paradigms (e.g., randomized, parallel) to the design of overload-tolerant systems. d). The identification of heuristics and guidelines that may assist the designer of overload-tolerant systems. The result of the project will play a role in the design of systems and algorithms that guarantee optimal or near optimal performance. ***